Tectonic Evolution of a Grenville-age Orogenic Belt, Van Horn, West Texas

Most Grenville-age terranes in North America are composed of granulite and amphibolite grade metamorphic rocks, and under- standing of the structural development is obscured by the meta- morphism. In the Van Horn Mountains of West Texas a late Precambrian orogenic belt is preserved from shallow crustal environments. The objective of this project is to integrate structure, sedimentology and geochronology to characterize timing and style of deformation along this southern boundary of the Proto-North American craton. Results will provide an unusually clear picture of the tectonic evolution of this Grenville-age terrane.